Articulatory-acoustic Relations in Linguistic Phonetics

This project aims to provide a firm foundation for phonetic theory by determining a possible set of articulatory-acoustic relations for a wide range of sounds. The project goal is to consider the complete range of phonetic phenomena in the languages of the world. The data are to be described in terms that make evident what a phonological theory must encompass, and also in terms of computer programs that explicitly model the articulatory movements and the corresponding acoustic structures. The products of this research will also include a valuable body of illustrative instrumental data, and a recording illustrating as many as possible of the diverse range of sounds.